Special Projects: Managing the Academic Career for Women Faculty at Undergraduate Computer Science and Engineering Institutions

EIA-0136996
Francioni, Joan
Computing Research Association

Managing the Academic Career for Women Faculty at Undergraduate Computer Science and Engineering Institutions.

This award to the Computing Research Association (CRA), provides funds to support a workshop entitled "Managing the Academic Career for Women Faculty at Undergraduate Computer Science and Engineering Institutions". The workshop will be co-located with the ACM's conference on Computer Science Education (SIGCSE 2002) and will be organized by the CRA's Committee on the Status of Women in Computer Science and Engineering (CRA-W). The workshop is planned to provide faculty members in undergraduate education information and tools to build successful academic careers. Further, the workshop will provide mentoring activities targeting women in undergraduate teaching and research who face particular challenges in pursuing and maintaining academic careers at primarily undergraduate teaching institutions.